CAREER: Core-Sets for Geometric Optimization and their Applications.

In a remarkably short time since their discovery, core-sets have emerged as a powerful
tool for the study of geometric optimization problems. The main idea behind the technique
is to compute a small subset of the input, called the Core-Set, that `approximates' the
input and allows the optimization problem to be solved on this concise representation.
Core-sets are exciting because of their prospect in the development of powerful, practical
and general methods that are applicable to a large class of problems from various
applications including automotive and aircraft industries, space exploration, civil
surveyors, the movie, computer gaming and medical industries, and developers of security
and geographic information systems.

This NSF Career proposal focuses on the design and implementation of efficient methods
for geometric optimization problems and their applications to real-world problems using
the paradigm of core-sets. As part of this proposal, application of core-sets to
problems like curve and surface reconstruction from massive unorganized point clouds
will also be explored. A key characteristic of the proposal is that it will help advance
the knowledge across disciplines like computational geometry, convex optimization and
machine learning. The use of core-sets will result in the design of algorithms that will
be easier to code and will be faster and more robust. Furthermore, the PI plans to continue
incorporating his research results in: (1) course development, (2) mentoring of graduate
and undergraduate students by maintaining a careful balance between theory, applications,
algorithms and computational projects, (3) development and maintenance of software
solutions related to core-sets and their applications.